Acquisition of a High-End UV-VIS Scanning Spectrometer System

With support from the Major Research Instrumentation (MRI) Program, the Department of Chemistry and Biochemistry at Kennesaw State University will acquire a UV-VIS scanning spectrometer. Research will focus on the following studies: a) synthesis and characterization of novel monodisperse oligo(p-phenylene vinylene)s as models for poly(p-phenylene vinylene)s; and b) quantification of polymeric aluminum in water treatment coagulants.

Scanning UV-VIS spectroscopy is a workhouse in a modern chemical laboratory. It is critical for the study of chemical reactions, as it enables the detection of ultraviolet or visible light-absorbing molecules. These studies will have an impact in a variety of areas, especially environmental sciences and materials chemistry.